CAREER: The Development of Heading Perception in Infancy

THE DEVELOPMENT OF HEADING PERCEPTION IN INFANCY

Rick O. Gilmore
Department of Psychology
Pennsylvania State University
University Park, PA 16802

When moving around the environment, animals generate a pattern of visual
motion called optic flow. Optic flow provides information about where and
how fast the observer is moving. This information is crucial for safely
moving through the environment. Despite its importance, very little is
known about how the ability to perceive optic flow develops early in life.
This project will examine how young infants develop the ability to
determine which direction they are moving or heading through the
environment. It will examine the role that changes in visual factors, such
as acuity or sensitivity to motion, play in the ability to perceive one's
heading. The project will examine how infants' emerging abilities to crawl
and walk shape their perceptual capacities. The project also will examine
how infants develop the ability to use visual information to maintain
balance and control posture. The results will provide new information
about the development of a perceptual skill that is critical for maintaining
balance, avoiding collisions, and moving safely through the environment.
In turn, the results will lay the groundwork for future research into the
impact of postnatal brain development on other aspects of perceptual and
motor development. Finally, this CAREER project will incorporate educational
activities that will help to train a new generation of students in the
emerging field of developmental